Ecological and Historical Determinants for Body Size Evolution: Insular/Mainland Contrasts in Three Reptile Systems in the Sea of Cortez

9318906 Case This project tests the hypothesis that ecological interactions are responsible for the dramatic body-size changes in three independent island reptile systems: Sauromalus, Cnemidophorus, and Crotalus in the Sea of Cortez, Mexico. The history of body size changes is inferred from the phylogenetic relationships among populations, as reconstructed from nuclear and mitochondrial DNA sequences. This historical information is used to test hypotheses of the population genetic response to sympatry with competing species. This research uses new technques to test long-standing hypotheses about character displacement. %%% This research is important because it allows re-evaluation of some of the classic examples of population genetic response to competition (character displacement) and yields new insights into the roles of competition vs. predation in the genetic change of populations and structure of communities. Understanding the effects of ecological interactions of island species can be applied to conservation and management of small isolated populations (e.g., sensitivity to introduced predators and competitors). This research also provides scientific background for sound implementation of endangered species legislation. ***